MRI: Acquisition of a 400 MHz NMR Spectrometer

With support from the Major Research Instrumentation (MRI) Acquisition Program, the Department of Chemistry at Trinity College (Hartford CT.) will acquire a 400 MHz NMR spectrometer. This instrument will allow researchers to advance their investigations on, a) the conformational behavior of tungsten-alkynylpeptides, b) the conformational behavior of ferrocenylcyclicpeptides, c) the synthesis of osteocalcin peptides, d) the conformational behavior of capsaicin, e) the binding of metals to oligonucleotides, f) carbon-carbon bond forming reactions mediated by indium, g) synthesis of enediyne and epoxydiynes, h) the oxygen transfer chemistry of rhenium-oxo complexes, and i) the structure of metal polyhydride complexes.

Nuclear Magnetic Resonance (NMR) Spectroscopy is the most widely used tool available to chemists for the elucidation of the structure of molecules. It is used to identify unknown substances and to provide information on the arrangement and connectivity of atoms in molecules. Dynamical information is obtained providing insight on the motions of molecules. This award will provide essential analytical capabilities to faculty and students. It is vital to the chemistry curriculum where students are introduced to NMR and use it in their laboratory courses.